Ligand Effects on the Chemistry of Ruthenium Complexes

This award in the Inorganic, Bioinorganic, and Organometallic Program provides continued support to the investigation of ruthenium(IV) oxo chemistry by Dr. Kenneth J. Takeuchi of the Chemistry Department, State University of New York at Buffalo. New complexes will be synthesized which utilize tertiary phosphine ligands, cis-chelating ligands, trans-spanning ligands, and macrocyclic bis(dioximato) ligands. A variety of steric and electronic environments will be created around the metal by use of these ligands. The kinetics and mechanism of the oxidation of alcohol, amine, and sulfide substrates will be studied in detail, for the purpose of monitoring the sensitivity of the catalyst to these environmental changes. In addition, ruthenium(II) aquo complexes of these ligands will be prepared and their substitution and aerobic oxidation reactions with alkenes will be investigated. %%% Ruthenium(IV)oxo complexes have been found to serve as effective catalysts for the oxidation of certain organic compounds. Previously, Takeuchi has determined the details of action of some complexes of this type. Here, the complexes will be modified and their catalytic activity tested to determine if the activity of the catalyst can be controlled to give specific products under predetermined conditions.